Collaborative Project: Gravitational Microlensing of the Galactic Bulge Stars

Using modern panoramic detectors and modern computers a massive photometric search for variable objects in the Galactic Bulge is being undertaken. About 100,000,000 photometric measurements are obtained each year. The primary goal is to detect gravitational microlensing of the Bulge stars by stars, brown dwarfs and planets in the intervening galactic disk. A large catalogue of variable stars of all kinds will be generated and made available to any interested investigator.